Geometric and probabilistic methods in group theory and dynamical systems

A conference titled ``Geometric and Probabilistic Methods in Group
Theory and Dynamical Systems'' is planned as a concluding event for the
``Special Year 2005 - Asymptotic Group Invariants and their
Applications'' organized at Texas A&M University. The wealth of ideas and applications related to the study of asymptotic invariants of infinite finitely generated groups is immense and it touches upon many different areas of considerable current interest.

The Conference will bring together people of various backgrounds and interests and provide an outlet for exchange of ideas, information and discussion of the most significant open problems relating the various areas involved. It will showcase the recent advances and achievements, provide strong momentum and set directions for further research. The list of invited speakers that tentatively confirmed their participation includes Baumslag, Bestvina, Bridson,
Diaconis, Farb, Ghys, Gordon, Guentner, Kapovich, A. Katok, S. Katok,
Lubotzky, Mozes, Olshanskii, Popa, Reid, Saloff-Coste, Sapir,
Shlyakhtenko, Vogtmann, and Zelmanov. The organizers will make deliberate efforts to bring graduate students and researchers in early stages of their career to the Conference and will reserve talk slots for such participants. The mixture of participants ranging from the world's most established researchers in the areas related to the conference topic(s) to young researchers in early stages of their careers and graduate students will provide a sense of community and continuity and will add an important mentoring and role model component to the event.